Conference and Proceedings: "Best Practices in Science Exhibition Development" -- A Conference to be Held at the Exploratorium in San Francisco, California

The Exploratorium will host an invitational three-day conference on best practices in science exhibition development. At the conference practitioners will identify best practices in conceiving, designing, managing and developing science exhibitions. The conference will highlight current issues such as responding to diversity, providing access to current science and balancing the considerations of market and mission. The ideas and issues raised at this conference will culminate in a publication for dissemination to the field that includes conference proceedings as well as interviews with and essays by practicing exhibition professionals